CAREER: High Resolution Optical Microscopy Studies of Mesostructured Polymer-Dispersed Liquid Crystal Films

This Faculty Early Career Development (CAREER) project, supported in the Analytical and Surface Chemistry Program, will use near- field scanning optical microscopy to study polymer-dispersed liquid crystal thin films. Professor Higgins and his students at Kansas State University will study the mesoscale structural, electronic, and dynamical properties of these thin film materials for application as flat-panel displays. This integrated CAREER research project will afford students the opportunity to learn how the spatial confinement of organic mesostructured systems affects their properties as relates to flat-panel displays. State-of-the-art optical microscopy methods that provide submicron spatial resolution will be used in this work. Other educational projects to be developed during this project involve computer simulations on data analysis, analog electronics, Fourier transforms, and chromatographic separations for use in undergraduate course work and a new course in chemical microscopy. Many materials of scientific and technological interest involve spatial variations in the electronic, structural, and chemical properties on very small distance scales. In order to devise materials with desired features on this spatial scale it is necessary to develop methods for quantifying the properties at the near single molecule limit. This CAREER research project will apply state-of-the-art near-field optical microscopy to the study of such properties of polymer-dispersed liquid crystalline materials. Undergraduate and graduate students will be exposed to the application of these new methods to study these materials that have potential for use in making flat-panel display devices.